Trophic Effects of Corticosteroids in the Hippocampus: Mechanisms and Implications for Behavior

Glucocorticoids, a family of steroid hormones secreted primarily by the adrenal glands, bind selectively to protein receptors in the hippocampus, a brain region involved in the formation of new memories. Both the pyramidal cells of the CA1 region and granule cells of dentate gyrus within the hippocampal structure show extensive hormone binding, much higher than the rest of the brain. These steroids are normally secreted at basal levels unless elevated during times of stress. Chronic elevations of physiological glucocorticoids, for example during prolonged stress, have been shown to have deleterious effects on pyramidal cells of the hippocampus and this is alleviated by removal of the adrenals. Long-term adrenalectomy is not without cost to the hippocampus, however, since this treatment causes loss of granule cells in the dentate gyrus. Thus, in selective regions of the hippocampus, basal levels of glucocorticoids actually protect the cells from dying. Dr. Roy will characterize the anatomical changes that occur to the dentate gyrus following adrenalectomy. Furthermore, since this is a critical brain region for learning and memory, he will correlate changes in the anatomy with performance in tests of spatial memory. The results will not only yield vitally significant information about the basic function of glucocorticoids in neuronal survival and cell death, but will also define its behavioral consequences when this protective effect of hormones is removed. Information about the basic processes underlying the death of subpopulations of brain cells as well as the mechanisms that prevent cell death in a healthy brain may impact greatly on our appreciation and treatment of such brain disorders as caused by stroke, Alzheimer's disease, and the normal aging process.